Research in the Quantum Field Theory of Elementary Particles

9511632 Weinberg String theory is an attempt to move beyond the quantum mechanical description of elementary particles as point like particles to a formulation of them as excitations of a microscopic string-like objects. These excitations would include not only quarks, gluons, leptons ,etc., but also the graviton, the quantum excitation of gravity so that one would have a truly unified theory of all interactions. One aim of this research is a better and deeper understanding of space-time and a quantum theory of gravity. A second aim is to explore the links of such a theory to conventional particle physics as described by the standard model and its implications for astrophysical and cosmological measurements. ***